Science and the Search for Meaning

9908601
SCOTT

SoundVision Productions is requesting a planning grant of $53,230 to create "Science and the Search for Meaning," a series of one-hour public radio programs and ancillary materials addressing the major scientific discoveries of the twentieth century and how they shape the essential philosophical and religious questions of our age.

During this planning phase, SoundVision will 1) Identify a format and topics to be covered and determine the focus of each program; 2) expand the advisory committee to insure representation from a range of disciplines; 3) work with advisors to identify key scientific and ethical issues facing society today; 4) define the advisors' process of editorial oversight; 5) conduct front end evaluation with radio listeners to assess the general level of awareness and interest in the subject; and 6) identify a possible series host.